Model-Based Robot Control with Dynamics Emulation and Performance Monitoring

The proposed research advances the concept that the dynamic model implemented in a robot controller should describe a physically realizable manipulator. This novel approach of dynamics emulation will reduce the uncertainty in the controller by allowing for quantitative measures of the induced approximations. To the basic controller structure, this approach adds a supervisory module which monitors performance and adjusts the feedback gains accordingly. This module thus adds a degree of adaptiveness to the system and should produce uniform performance over the entire workspace. This approach could lead to the development of a new generation of advanced controllers for robotic manipulators.